A Real-Time Completely Digital Dynamic Power System Simulator

Power system engineers have long desired a real-time simulator which is capable of dynamic simulation of and interconnected bulk power system of reasonable size, greater than 100 buses, and with reasonable resolution, up to 2 KHz. However, the current serial computational power is inadequate. This research project will exploit large-scale parallel processing and to develop the concurrent algorithm required to achieve a completely digital realization of this simulator. The power system topology will be mapped on to a massive number of processors, one processor per bus, using the transputer. Initial mapping experiments will be carried out at the Cornell Center for Simulation in Science and Engineering which will provide a hypercube configured system for simulation. However, the "general purpose" hypercube cannot handle large systems so that a dedicated simulator and concurrent algorithms will be developed.